Interlingual Machine Translation and the Lexicon

This research is concerned with the applicability of a lexical- based framework to the problem of interlingual machine translation. There are two tasks relevant to this goal. The first task is the augmentation of an existing lexical-semantic representation to include temporal, aspectual, and spatial information, all of which are necessary for adequate machine translation. The second task is the construction of routines for automatic acquisition of lexical entries based on this representation. In general, the project aims to test hypotheses that support the view that a lexical-based parametric framework can be built to accommodate interlingual machine translation, and provide and adequate basis for capturing temporal, aspectual, and spatial information.